Southern California Analysis and Partial Differential Equation Conference Series

This award provides three years of support for the Southern California Analysis and Partial Differential Equation (SCAPDE) Conference Series. The objective of the project is to revive a conference series that had a highly successful run from the late 1980s until the early years of the present decade, enjoying NSF support for most its existence. A new generation of energetic young mathematicians will resurrect the series, thereby restoring to the region's vibrant mathematical culture a much missed element. The SCAPDE conference will be held twice a year, with the venue rotating through three locations in Southern California: UCLA, UC-San Diego, and UC-Irvine.

Among the many long-standing, recurring mathematical conferences in the US, the original SCAPDE stood out as a model of successful efforts to ensure diversity and broaden participation. SCAPDE was widely known for the inclusion in conference activities of women and members of underrepresented groups, of graduate students and postdocs. The new team of organizers intends to duplicate that record and even build upon it.